The Role of Myosin Cross-Bridge Orientation in Muscle Contraction

The aim of this project is to elucidate the molecular mechanism of muscle contraction by following the rotational motion of specific probes attached to myosin cross-bridges in muscle fibers. Muscle fibers will be perturbed chemically or mechanically and the effect of these perturbations on the orientation of the cross-bridges will be followed in the steady state and time-resolved modes. The resulting data will be correlated with the rotating cross-bridge model of muscle contraction. An appealing model of the molecular mechanism of muscle contraction proposes that active protein elements of the mechanism move in a cyclical manner in synchrony with the hydrolysis of ATP to produce muscle shortening against a load. It is known that the head region of myosin (the cross-bridge) contains the hydrolysis site for ATP and acts as a transducer converting chemical energy to mechanical energy. Actin is also of interest in this class of models since the actin filament has specific binding sites for myosin. A popular model of model contraction, the rotating cross-bridge model, serves as a focal point of the experimental investigation of muscle contrating mechanisms by Dr. Burghardt.